Conference on the Genetics and Evolutionary Biology of Meiotic Drive, Honolulu, Hawaii, January 6-8, 1988

The "Conference on the Genetics and Evolutionary Biology of "Meiotic Drive" will be held in Honolulu, Hawaii during January 6-8, 1988. Investigators from different sub-disciplines of biology and using different experimental organisms will have the opportunity to discuss their results with each other as well as with students. Understanding this fundamental genetic mechanism is important for several reasons related to understanding genetic mechanisms and evolutionary considerations, but because meiotic drive can confer advantages upon specific gametes it may also become relevant to economic considerations.